Theory of Chemical Dynamics

Professor William Miller is supported by a grant from The Theoretical and Computational Chemistry Program to continue his research in the theory of chemical dynamics. This research contributes significantly to our understanding of the fundamental interactions between molecules, and the nature of chemical reactions. The main thrust of the research is in the general area of chemical dynamics, and in the development and application of new theoretical methods and models for the treatment of reactive scattering. The specific topics to be dealt with include a rigorous quantum mechanical reactive scattering theory for simple chemical reactions, and a Feynman path integral methodology for real time simulations of quantum dynamics of more complex chemical systems.